Ecology & Society in Four Chinese Communities

This award will support a two year program of research in four ecologically distinct communities in Inner Mongolia. The principal investigators, an anthropologist from Hunter College CUNY and a sociologist from the University of Toronto will carry out the research in collaboration with Chinese scholars from Beijing University. The project will examine how the productive arrangements of the society (animal husbandry, agriculture, mixed animal-agriculture, and commercial) influence family and demographic variables as well as migration, social mobility and changes in occupation, income, residence and levels of education. A survey conducted in the summer of 1988 will be followed by an in depth study of a sample of households.